Acquisition of an Electron Paramagnetic Resonance Spectrometer for Chemical Research

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at John Carroll University will acquire an Electron Paramagnetic Resonance (EPR) Spectrometer. The new instrument will support the research of major users at both John Carroll University and Youngstown State University. Among the research programs in which EPR spectroscopy will play a vital role are: 1) probing the active site of blue copper proteins; b) systematic study of titatnium (III) in the presence of biologically relevant ligands and a spin-trap; c) structural analysis of an iron-sulfur cluster associated with cytoplasmic aconitase; d) investigation of the electronic states of novel thiovanadyl complexes and new radical anions of cyanoacacarbons; e) determination of high or low-spin crossover in manganese and chromium metallocenophane complexes; and f) analysis of redox states of doped rutile pigments.

An electron paramagnetic resonance (EPR) spectrometer is an instrument used to obtain information about the molecular and electronic structure of molecules. It may also be used to obtain information about the lifetimes of free radicals which are often essential for the initiation of tumor growth and/or a variety of chemical reactions. These studies will have an impact in a number of areas, especially biochemistry.